PYI: Toward The Realistic Modeling of Electromagnetic Scattering Problems

The PI describes his work under the Presidential Young Investigators award as follows: In formulating electromagnetic scattering problems, one is often forced to choose between tow conflicting requirements: rigorous analysis vs. realistic modelling. In the past, much emphasis has been placed on the rigorous analysis at the expense of realistic modelling. More recently, several classes of problems have arisen in which the effect of the geometry on the scattering characteristics is of prime importance. Two such problems will be addressed in this study: (1) Radar cross section analysis of partially open cavities. Minimizing radar returns from jet engine intakes is one of the major challenges in stealth technology. A novel ray launching technique will be applied to analyze the effect of shaping or coating the intake interior. (2) Characterization of microstrip discontinuities. Accurate electromagnetic characterization of microstrip transmission structures is essential in the design of monolithic microwave integrated circuits. A time-domain finite- difference approach will be applied to various discontinuities in order to extract scattering parameters/circuit models crucial to the development of CAD tools. This PYI award will study theoretical modelling problems in electromagnetic scattering. The emphasis will be on realistic modelling approaches in which the geometry of the scatterer is of prime importance. Areas of emphasis will be on analysis of (1) radar cross sections for partially open cavities such as in jet engine intakes, and (2) characterizations of microstrip discontinuities which are of importance in developing computer aided design tools for monolithic microwave integrated circuits.